Globe Program Documentation and Evaluation

9509718 This proposal is to formulate an evaluation for the Global Learning and Observations to Benefit the Environment (GLOBE) Program. The project calls for the design, structuring, and coordination of a new kind of evaluation - one in which the evaluation staff, program officers, project staffs, and participating classrooms work cooperatively to provide the kinds of information that can support improvement of their activities and answer the questions of founders and policy-makers. Surveys will be designed to seek the impact of GLOBE on attitudes (toward science and the earth), skills, and knowledge of both students and teachers. Questions are to address different grade levels, schools with different kinds of network connections, in more- and less- industrialized settings, in English-speaking and non-English speaking classes and to address these issues in multi-part, on line student and teacher surveys. The evaluation design has both formative and summative aspects and seeks to provide information about a wide range of outcomes for students, teachers, and the scientific community. The documentation and evaluation role is a working partnership with the various GLOBE constituencies to support the activities of the program.